3-Manifolds and Geometric Group Theory

Proposal: DMS-9971555

PI: Peter Scott

Abstract: The proposer plans to investigate purely algebraic analogs of the theory
of the characteristic submanifold of a Haken 3-manifold. Some results in
this direction have already been obtained by several authors but their
uniqueness results are much weaker than that in the 3-manifold context. It
is expected that such results should also yield new understanding of the
purely topological theory of 3-manifolds.

The universe appears to be 3-dimensional and it is a very interesting
question to understand its shape. There is an abstract theory of spaces
called 3-manifolds which attempts to describe all the possibilities for
the shape of such a space. While this theory is not complete, there is a
great deal known. In particular, many (and perhaps all) such spaces can be
decomposed into simple geometric pieces in a natural way. In this
proposal, it is planned to investigate further the properties of this
decomposition into geometric pieces.